Quantifying Mixing and Its Impact on Heat Transport

The objective of this research project is to establish "mixing parameters" that will quantify the degree of mixing that is introduced by a perturbation to a flow. Mixing devices are often used to enhance heat transfer rates. The research approach will be to make experimental measurements of the flow characteristics and the degree of mixing that occurs in a channel containing three different arrangements of large-scale protuberances. Velocity measurements will indicate the magnitude of the secondary motions, as well as the magnitude and length scales of the turbulent fluctuations. The level of mixing that has occurred in the different flows will be quantified with both spatial and temporal probability distribution functions of the temperature field. These experimental measurements will be used to link two global mixing parameters to the actual mixing levels. One of the parameters indicates the extent of convective mixing by gross secondary motions, and the other indicates the magnitude of turbulent diffusion. A successful choice of generalized mixing parameters could have a major impact on the field of heat transfer since it will provide a means for comparing the effectiveness of various devices on mixing, and possibly provide a predictive technique for the augmentation of heat transfer. Increasing heat transfer rates is a critical problem for engineers designing devices that are limited in performance by their temperature, such as high-power computer chips and gas turbine engines. Cooling flows may not be sufficient, and so devices that mix the flow are often used to enhance the heat transfer. While mixing is known to increase heat transfer, there is no general parameter that indicates the level of mixing in a flow and how that mixing augments the heat transfer rates. In this fundamental study, experiments will be conducted to establish relevant "mixing parameters" based on the important physical mechanisms. Experimental measurements of a simulated electronics cooling channel with different mixing devices will be made to evaluate the ability of the "mixing parameter" to predict mixing levels and resulting heat transfer.